I-Corps: Aquaculture Diagnostics

The broader impact/commercial potential of this I-Corps project is to explore translation of diagnostics for the aquaculture industry. Pathogens cost the aquaculture industry approximately $6 billion a year and are the greatest challenge to farmers regardless of location or size of operation. Rapid, low-cost diagnostic tests are needed to mitigate disease impacts and improve overall stock health. The proposed technology may be incorporated into user-friendly tests for farmers to perform on-site, without additional equipment nor training. The results are easy-to-read and can inform an action plan for the farmer.

This I-Corps project is based on the development of a platform technology to produce rapid, on-site diagnostic tests for aquaculture disease pathogens. Unlike conventional tests that use antibodies as detection agents, the flexible and adaptive technology utilizes bioengineered proteins to rapidly bind a target analyte creating stable, consistent, and easy-to-read colorimetric results in a paper-based test. The test works by applying a sample to the surface of the test strip where the bioengineered proteins capture any target analyte present. As the sample flows through the paper layers, reactions occur that amplify low signals for increased sensitivity. When exposed to light, a chemical reaction is initiated that results in an easily interpretable colorimetric result in as few as 10 minutes. The farmer can relate this color to a concentration and take appropriate actions to mitigate disease impact. This project will explore relevant parameters for technology translation.